Annual Cliometrics Conference to be held at the University of Illinois in May 1990.

The Cliometric Conference series continues to serve as an important means for encouraging research in economic history and as a forum for disseminating new methods, findings, and interpretations among historians as well as economists. A special effort is made to include the work of graduate students and assistant professors representing a broad range of specialties, but with increasing emphasis on twentieth century problems. The scientific results of the cliometric history movement have been impressive and promise to be equally important in the years ahead. The next meetings are scheduled to be held at the University of Illinois in May of 1990 and at Indiana University in May of 1991.